Dynamics and Time-Evolution of Molecular Systems

This project in the Theoretical and Computational Chemistry Program involves study of electron nuclear dynamics in molecules. Most previous work has assumed electronic and nuclear motions to be separable. Here, new theoretical and computational methods will be developed to allow study of the coupling of these motions. Applications will be made to problems of current interest where such effects are important. These include nonadiabatic couplings in molecular spectra and the time-dependent dynamics of electron transfer processes.